Northeastern Analysis Meeting 2017

This award provides funding for US participation in the conference "Northeastern Analysis Meeting" that will be held October 13-15, 2017 at the State University of New York-Albany.

The conference focuses on recent developments in Analysis, especially in the fields of partial differential equations, harmonic analysis, and operator theory. A number of distinguished mathematicians have agreed to attend and speak at this conference. This award gives early career researchers, members of underrepresented groups, researchers not funded by NSF and the like an opportunity to attend and participate in this conference. The organizing committee will strive to make this funding opportunity known to target groups through a number of different activities. More information will be made available at:
http://www.albany.edu/~mb533919/NEAM%202017%20index.html